A Laboratory for Teaching Multimedia Technology to Computer Science Majors

The university is developing a course on the principles and technology of multimedia, intended for juniors and seniors in Computer Science and Computer Engineering. This course has a significant lab component to demonstrate major ideas, generate enthusiasm, and develop hands-on skills. Major subjects include signal processing, compression, scheduling, data retrieval, interface design, device interfacing, networks, media (sound, music, voice, images, graphics, video), and applications programming. Equipment for this lab consists of networked personal computers, programming and applications software, and I/O devices. The course's progress is being measured with the help of a group of outside experts. The materials developed in this lab include lab exercises, training materials, recommendations on hardware and software, and software for functions that are not commercially available. These materials will be made available electronically to other teachers.